SITE: Scholarships for Information Technology and Engineering

Computer Science (31)

Eighty one-year scholarships are provided (20 each year) and renewable for a second year pending acceptable performance to undergraduate students in the areas of Pre-Engineering, Information Technology (IT), Systems Administration, Systems Engineering, Networking, Application Development and Web Design. The objectives of this project are to recruit academically talented students who are low-income and underrepresented, to provide extensive student support, to provide industry exposure, to improve problem solving and communication skills, to determine program efficacy, and to disseminate proven practices. Scholarship students attend weekly seminars/labs to receive additional advising, have their progress reviewed, participate in advanced topic workshops, meet industry professionals, tour businesses, develop multidisciplinary teamwork skills, conduct research, and develop oral presentations.